Perforamce Evaluation of Vehicles with Semi-Active Suspensions, including Body Compliance

This collaborative project with the General Motors Research Laboratory at Warren Michigan focuses on controller synthesis and development of analytical and numerical tools suitable for performance evaluation of semi-active vehicle suspensions under a variety of road conditions. Particular emphasis in on the dynamic interaction between the suspension and the body structure whose compliance is included in the model. Inclusion of body compliance is considered necessary in view of the high frequency harshness observed in recent studies of suspension systems with on-off dampers, which has potential for exciting body structural resonances and may lead to deterioration in ride comfort. Control laws governing the variation of damping coefficients in semi-active dampers will be obtained using calculus of variations. In this approach the suspension system can be optimized with respect to a suitable performance index under specified constraints. Simplified control laws that may still yield acceptable performance but are easier to implement will also be considered. Evaluation of system performance in time and frequency domains will allow prediction of the degree of improvements resulting from application of more sophisticated control laws and continuously variable dampers prior to building and testing prototypes***//